CAREER: Interactive Gesture-Based Data Manipulation and Visualization for Exploratory Learning and Research

Visual exploration and analysis of data is increasingly important for advancement in virtually every area of human endeavor. Whether recorded directly by people or indirectly using machines, data captures our observations and interpretations of the world. When people interact with data, it is almost always in a visual form like graphics or text. The goal of this project is to vastly expand the usefulness of interactive visualizations by providing a general way to create and edit data inside the visualizations themselves. The key new idea of the project is that visualization users can perform sequences of gestures with common input devices to express their observations and interpretations directly in visual form. The visualizations not only show data, but also serve as meaningful graphical spaces in which to edit that data. By extending the data processing workflows and display techniques that are currently used in popular visualization tools and software libraries, we can flexibly and expressively translate the details of interactions into precise data changes with simultaneous visual feedback.

The innovative contributions of the project will include a general method to support interactive data editing in visualizations, a diverse collection of data editing gestures, a set of patterns to guide the process of designing visualization tools with data editing features, a declarative programming language for quickly building those tools, and a variety of built tools that show off real applications of data editing in visualizations. The project focuses on developing, evaluating, and distributing tools for scholarly research in the digital humanities. It tightly integrates education to bring together students and researchers from computer science, information science, and the humanities, and provide them with concrete opportunities to engage in authentic interdisciplinary collaboration. Scholarly research and education in the humanities involves open-ended exploration, analysis, and interpretation of complex data sets in diverse areas of study. This makes it an exemplary first target to demonstrate how gesture-based visual editing can be broadly applied to data analysis in virtually every segment of society. The broader impacts of the project will spring from the availability of a new, foundational, general-purpose methodology to support data entry, organization, annotation, and correction. Project products will include publications, tutorials, videos, the visualization gesture system as open source software, a compendium of data editing gestures, and a gallery of demonstration visualization tools for public download. Information on the project and resulting resources can be accessed on the project web site (http://www.cs.ou.edu/~weaver/nsf-career/).